Thermal Radiation Properties of High-Temperature Superconducting Films

High-Tc superconducting films are very promising as coatings for low-temperature radiation shields, potentially yielding heat leaks an order of magnitude smaller than gold films. However, accurate knowledge of the high-Tc film optical properties is required to evaluate the effectiveness of this use of the films. At present, there are no high-precision experimental data for the infrared reflectance of high-Tc superconducting films at low temperatures. Existing data suffer from limited instrument accuracy and reference mirror errors. There are no engineering methods for the precise prediction of this paramever, particularly in the high- reflectance region. To address this problem reflectance measurements of high-Tc superconducting films are being performed with a precision grating spectrometer using an eightfold reflection technique that does not employ a reference mirror. Two theories of superconductor optical properties, based on BCS theory and valid in the pure limit, are compared to these measurements. Approximate relations for engineering use will be derived. The precision reflectance data collected in this study provide for the first time a quantitative assessment of the feasibility of high-Tc superconducting radiation shields.